Collaborative Research: Isotopic insights to mercury in marine food webs and how it varies with ocean biogeochemistry

Mercury is a pervasive trace element that exists in several states in the marine environment, including monomethylmercury (MMHg), a neurotoxin that bioaccumulates in marine organisms and poses a human health threat. Understanding the fate of mercury in the ocean and resulting impacts on ocean food webs requires understanding the mechanisms controlling the depths at which mercury chemical transformations occur. Preliminary mercury analyses on nine species of marine fish from the North Pacific Ocean indicated that intermediate waters are an important entry point for MMHg into open ocean food webs. To elucidate the process controlling this, researchers will examine mercury dynamics in regions with differing vertical dissolved oxygen profiles, which should influence depths of mercury transformation. Results of the study will aid in a better understanding of the pathways by which mercury enters the marine food chain and can ultimately impact humans. This project will provide training for graduate and undergraduate students, and spread awareness on oceanic mercury through public outreach and informal science programs.

Mercury isotopic variations can provide insight into a wide variety of environmental processes. Isotopic compositions of mercury display mass-dependent fractionation (MDF) during most biotic and abiotic chemical reactions and mass-independent fractionation (MIF) during photochemical radical pair reactions. The unusual combination of MDF and MIF can provide information on reaction pathways and the biogeochemical history of mercury. Results from preliminary research provide strong evidence that net MMHg formation occurred below the surface mixed layer in the pycnocline and suggested that MMHg in low oxygen intermediate waters is an important entry point for mercury into open ocean food webs. These findings highlight the critical need to understand how MMHg levels in marine biota will respond to changes in atmospheric mercury emissions, deposition of inorganic mercury to the surface ocean, and hypothesized future expansion of oxygen minimum zones. Using field collections across ecosystems with contrasting biogeochemistry and mercury isotope fractionation experiments researchers will fill key knowledge gaps in mercury biogeochemistry. Results of the proposed research will enable scientists to assess the biogeochemical controls on where in the water column mercury methylation and demethylation likely occur.